Vertex Operator Algebras and Mathematical Conformal Field Theory

Huang and Lepowsky intend to solve a range of problems related to
vertex (operator) algebra theory and conformal field theory, and their
relations with and applications to a variety of areas of mathematics
and physics. They intend to use new and evolving algebraic, geometric
and analytic ideas and methods. Huang proposes to continue to develop
an algebraic, analytic and geometric theory underlying conformal field
theory and to apply the results obtained to the solution of problems
in algebra, geometry and topology. Lepowsky intends to continue to
develop vertex operator algebra theory and its relations with
conformal field theory, infinite-dimensional algebraic structures,
number theory and the theory of combinatorial identities. Huang and
Lepowsky also propose to solve problems related to the remarkable
circle of ideas called ``monstrous moonshine,'' to geometric
uniformizations and to logarithmic tensor product theory. The varied
topics discussed in this proposal are in fact deeply connected with
one another, and the solutions of certain of these problems are
expected to be useful in the analysis and solution of others. A
long-term goal of Huang and Lepowsky is to contribute to the deeper
development of a mathematical theory that will enhance the conceptual
understanding of many known and still-unknown connections among many
branches of mathematics and theoretical physics. Huang and Lepowsky
will continue to be very active in their teaching, writing, organizing
of conferences and seminars, and their other activities designed to
increase and enhance the understanding in the mathematical community
of the very rich field in which they work. They will also continue to
try to convey to members of the theoretical physics community, through
writing and their speaking, their enthusiasm for the richness and
utility of their approach to vertex operator algebra theory and
mathematical conformal field theory.

The theory of vertex operator algebras arose naturally in the study of
certain infinite-dimensional symmetries and in the solution of
fundamental problems relating the ``Monster,'' a certain finite
symmetry group, with number theory, and this theory is fundamental to
a wide range of problems in both mathematics and theoretical physics.
Vertex operator algebras are crucial ingredients in the mathematical
study of conformal field theory, a physical theory that arose in both
condensed matter physics and string theory, which in turn is a
physical theory attempting to unify all the interactions in the
universe. Conformal field theory is in the process of being rapidly
developed into a rich and beautiful mathematical theory. This
development has already led to new ideas, surprising results and the
solutions of many mathematical problems, and it is expected to lead to
many more. The mathematical development of conformal field theory has
also been applied to the study of physical phenomena such as disorder
sytems, condensed matter physics on surfaces with boundaries and
certain higher-dimensional physical objects called D-branes in string
theory.